Infrared Detection and Spectroscopy of Embedded Supernovae in Actively Star Forming Galaxies

AWARD NO: AST-0607737
PI: Michael Skrutskie
INSTITUTION: University of Virginia Main Campus
TITLE: Infrared Detection and Spectroscopy of Embedded
Supernovae in Actively Star Forming Galaxies
ABSTRACT
Massive stars are the likely energy sources powering starburst and interacting galaxies
which therefore should be hosts to frequent supernova events. Yet, contrary to
expectations, surveys for supernovae among such galaxies have established rates which
are comparable to supernovae rates observed in more normal and/or isolated galaxies.
However, the bulk of these surveys are also conducted at visible wavelengths where
obscuration by dust associated with star formation and competition from nuclear flux
may result in observers "missing" supernovae. Here a supernova search program will be
implemented in the near infrared (Ks-band, 2.17 m) where the extinction by dust will be
significantly reduced and the supernovae themselves will be brighter. The survey will be
carried out at the University of Virginia's Fan Mountain Observatory using the 31-inch
telescope and HAWAII-1 infrared camera (developed through an NSF Major Research
Instrumentation grant). Fifty program galaxies, 30 with infrared luminosities in excess of 2
x 1010LSun and within 32 Mpc, and 20 of the nearest galaxies more luminous than 1 x
1010LSun, will be targeted and observed monthly for supernovae. Detected supernovae
will be fed to the PAIRITEL automated 1.3-meter telescope at Mt. Hopkins, AZ for
simultaneous J-, H-, and Ks-band imaging to determine light curves. Brighter supernovae
will also trigger target-of-opportunity spectroscopic observations with the TripleSpec
near-infrared spectrograph at the Apache Point Observatory 3.5-meter telescope. The
infrared spectra and light curves will allow the classification of the supernovae as a
function of environment, which will in turn allow the progenitor populations to be
characterized. The overall goals are a better estimate of the local supernovae rate and
more extensive observations of spectroscopic signatures diagnostic of envelope structure
and interaction with the surrounding medium.
This work will support the training of a graduate student who will be responsible for the
post-commissioning science program with TripleSpec using data from the imaging
survey which the student will also lead. This student will be deeply integrated into the
final assembly and testing of TripleSpec and its commissioning at the telescope.
Undergraduates from the University of Virginia will take part in the acquisition of data at
the Fan Mountain Observatory with hope of cultivating new instrumentalists in addition
to astronomical observers.